SBIR Phase I: Seismic Restraint of Hazardous Process Piping Industrial Buildings

The research will develop procedures and guidelines for seismic design and restraint of hazardous piping systems located in industrial-facility buildings. The design level for piping systems will be vased on the importance of the piping and the intensity of the seismic loading. A piping importance rating will be developed, based on OSHA and EPA standards for hazardous fluids. Seismic zpnation, including local soil characteristics and the respnse of diverse types of buildings, will be considered in the development of seismic design parameters. A computer code which incorporates state-of-the-art technology in the seismic area systems.